Communicating Mathematics

Mathematical Sciences (21)

The purpose of this project is to demonstrate the feasibility of a junior-level course for pre-service mathematics, science, and technology teachers on modern communications technology tools for use in the teaching of mathematics-intensive subjects. The program is developing, disseminating, and evaluating pilot versions of the proposed course and accompanying software during the 2000-1 and 20001-2 academic years. In addition to prototype materials, the project outcomes will be assessed with respect to: 1) soundness of the basic course concept, 2) expected outcomes of course as measured by student competencies, and 3) appropriate placement of course in undergraduate mathematics curriculum.